Research Perspectives on Research Universities: A Workshop

A major objective of PRA/STIA is to encourage greater understanding of the research university system of the United States because it is both the center for scientific research and for education of future scientists. This system has been undergoing change over the past twenty years and will experience even greater changes over the next two decades. It is important to gauge how major societal and technical changes have affected, and are likely to affect research universities. For these reasons it is timely to bring together scholars and policy analysts concerned with research universities to discuss the results of several major research projects on the subject. Such discussions will likely be of specific value to PRA as well as to other Federal decisionmakers. The Pennsylvania State University Institute for Policy Research and Evaluation and the Center for the Study of Higher Education will host a workshop on "Research Perspectives on Research Universities" held April 14-15, 1989 at Pennsylvania State University. PRA/STIA will support the cost of this workshop, with associated costs being covered by the University. The workshop will include eight sessions, concerned with historical, international, university-industry relations, Federal policies, and sponsored research. The last session will be a roundtable discussion. A workshop report will be prepared and other channels for disseminating the results will be used.